US-France Cooperative Research: Genetic and Environmental Control of Myogenesis

This award will support collaborative research in developmental biology between Dr. Marcia Ontell, University of Pittsburgh and Dr. Margaret Buckingham, Pasteur Institute, Paris, France. The objective of the project is to investigate the influence of innervation on the pattern of expression of contractile protein in developing skeletal muscles of mice. Fetal muscle organogenesis is characterized by successive waves of myogenesis, resulting in a heterogenous population of myotubes. Effective analysis of muscle differentiation, including the sequential expression of genes coding for the mRNAs for sarcomeric proteins, must be carried out with the collaborative efforts of laboratories skilled in molecular biology and in morphological analysis. In this project Dr. Buckingham will prepare nuclear extracts to study nuclear protein binding to muscle gene regulatory sequences and will study in vitro transcription of mRNAs coding for actin and myosin in normal murine muscle and in fetally denervated muscle, obtained from Dr. Ontell, as well as in muscle from transgenic mice. Dr. Ontell has developed new techniques, permitting transient or permanent denervation of developing mouse muscle. She will evaluate these muscles and when appropriate, the muscles of transgenic mice provided by Dr. Buckingham, with electron microscopy and quantitative morphometery. She will also investigate, with in situ hybridization, the actin and myosin mRNAs (at the single myotube level, with light and electron microscopic correlation) in normal developing murine muscles, in fetally deneverated muscles, and in transgenic mouse muscles using cRNA probes developed immunocyto- chemical and gel electrophoretic techniques. This project may lead to new information, regarding the genetic control of muscle development and maturation and the effect that innervation may have on the developmental program.